Partial Support of "Annual Directory of Student Science Training Programs for Precollege Students"

The "Directory of Student Science Training Programs for Precollege Students" lists the institutions which Science Service is able to locate that are conducting a wide variety of student science training programs for precollege students. Student science training programs are designed to provide students with educational opportunities in science, engineering, and mathematics beyond those normally available in course or laboratory work in the students' schools. The primary means of accomplishing this is by bringing students into contact with the instructional staff, research personel, and general resources of colleges, universities, and research institutions (private, industrial, and governmental). In addition to publishing the "Directory," Science Service conducts an annual conference bringing directors of such programs together so they can exchange ideas. Each year many people aspiring to direct such programs attend and start their own programs in subsequent years.